Ethonographic Research Training Award, Graduate Program in Anthropology

This project involves a grant for training in ethnographic research methods to the department of anthropology at Southern Methodist University. The funds will be used over a period of five years to insure that Ph.D. students in social/cultural anthropology who take a specified course of study in scientific research design and methodology have fieldwork experience before they begin their Ph.D. research. This activity is important to insure that the training of social scientists is as well-developed as possible, so that the new cohort of social researchers will be highly trained and capable of advancing our knowledge of contemporary problems.